Exploratiion of Tribological Coatings for MEMS Devices

An SGER award supports an exploration of a tribological coating for MEMS devices. A low temperature pulsed laser deposition technique will be used to deposit very thin (0.02-1um)titanium carbide coatings on prototype MEMS structures. The adhesion of the coating and its tribological properties will be evaluated. The deposition process will be optimized to provide maximum throwing power of the non-line-of-sight deposition as well as uniform, ultrathin, stoichiometric TiC wear resistant coatings.***